Collection and Dissemination of Geoscience Data and Knowledge for the National SMETE Digital Library

This project is collecting solid earth science data sets and complementing them with a system of easy-to-use, interactive user tools to provide a dynamic and engaging learning environment for students at all levels ranging from K-12, to undergraduate, graduate, and lifelong learners. In addition, evaluation of the system for use in undergraduate and high school classes is underway. Through this project a unique digital library environment is created for users to interactively study the same data sets that earth science researchers are utilizing to learn about the dynamics of the planet, and how changes in the earth system affect daily life. In addition, collaboration with the staff of the Cornell University libraries enables the investigation of the requirements needed to maintain a persistent digital collection. Partial co-funding for this project is being provided by the Division of Earth Sciences in NSF's Geosciences Directorate.